Cooperative Phenomena in the Electrical Conductivity of Composite Materials

Theoretical studies will be conducted on random networks with particular emphasis on disordered superconductors and quantum systems. The connection between percolation and superconductivity will be addressed for networks of Josephson junctions and for networks of thin wires governed by Ginzburg- Landau order parameters. Also, studies will be conducted on the random walk method for calculating transport properties such as the Hall coefficient at the percolation threshold.